Khirbat al-Mudayna al Aliya: Production, Politics, and Power in an Iron Age Village

With the support of the National Science Foundation, Dr. Routledge
and his colleagues will conduct a program of archaeological excavation and
survey in the vicinity Khirbat al-Mudayna al-`Aliya (KMA) on the eastern
edge of Jordan's Karak Plateau, ca. 35 kilometers due east of the Dead Sea.
KMA is an exceptionally well-preserved village occupied for a brief period
of time in the last half of the eleventh century BC (Iron Age Ib).
Importantly, this occupation immediately precedes the emergence of
territorial states in the region, including the biblical state of Moab into
which this part of Jordan was incorporated in the ninth century BC. The
founding, and brief occupation, of substantial villages in what is now an
agriculturally marginal part of Jordan raises many questions about economic
and political developments during this period of significant social change.
Dr. Routledge's research aims to address these issues by elucidating the
cultural form, political economy, and local ecology of Khirbat al-Mudayna
al-'Aliya and its surrounding Iron Age settlement system. In particular,
evidence will be sought for past environmental change, crop husbandry
practices, herding strategies and off-site pastoral activities, household
organization, the spatial distribution of activity areas in relation to
architectural variation, and exchange "paths" between households. This
evidence will not only shed light on the political economy of local
agro-pastoral production strategies, it will also illumine the structuring
practices of everyday life that are the social context for these
strategies. One key idea to be tested in this research is the suitability
of African models of state formation that emphasize social relations over
Eurasian models that emphasize control of land.